M-reps: Deformable Solid Modeling for Graphics & Simulation, Using Medially-Defined Multifigural Objects

M-reps define a multiscale approach to graphics modeling and rendering, replacing traditional polygonal and spline-based boundary representations (B-reps) with a solid modeling paradigm based on medial representation by meshes of medial primitives----diatoms. Each mesh defines a protrusion, an indentation, or a separate associated figure, and these figures are grouped in directed graphs to create complete objects. Each diatom represents the center of a solid region of width r, with a width-proportional tolerance defined on the diatom's associated surface regions and on its links to neighboring diatoms. Thus, a diatom mesh defines the figural boundary to within a width-proportional tolerance, and provides a width-proportional sampling of the figure's medial surface.

This project will undertake four main areas of research to develop and demonstrate the potential of M-reps:

1. augmenting current modeling tools and techniques to incorporate figural hierarchies, CSG-style boolean construction, boundary tolerances and width-proportionality into the modeling process;
2. adding specialized diatoms for creating sharp edges, corners, and creases in M-rep models;
3. implementing a new rendering system which combines implicit surface rendering with scale-based models to provide automatic simplification based on image-scale; and
4. exploring techniques for mapping boundary displacements and image textures to the medially implied surface.